Master Plan for New Permanent Exhibits -- A Planning Grant

The San Diego Natural History Museum is committed to the research and interpretation of the Southern California and Baja California area. New permanent exhibits to convey the excitement and relevance of natural history study is the focus of this planning grant.

The planning project has three goals. First, it will devise a master plan that establishes a philosophical foundation and the organizing framework for exhibit development. Second, a schematic design that articulates content, space allocation and exhibit techniques will be made. Finally, a plan for related materials and programs that will fund, enhance and expand the exhibit effort will be constructed. The twelve-month planning proceess will be evaluated and the results disseminated and added to the field of museum learning research.